ITR: Bugscope: An IT Test Bed for Sustaining Educational Outreach

EIA-0081117
Potter, Clinton
University of Illinois at Urbana-Champaign

ITR: Bugscope: An IT Test Bed for Sustaining Educational Outreach

In general, the scientific research community is enthusiastic about
supporting educational outreach efforts (e.g. remote access to scientific
instruments via the Internet) if they can be achieved with minimal impact
on the primary research mission of a research group. The research proposed
here is the development of information technology (IT) to automate the
infrastructure, administration and data handling tasks necessary to support
remote instrumentation projects for K-16 education. The goal is to develop
an IT infrastructure that can be readily adopted by other academic research
groups. One result could be the incorporation of the remote use of
research grade scientific instrumentation as an integral part of teaching
within K-16 curricula with little time and effort from the research groups
supplying the scientific resources. The outreach project, Bugscope, that
will serve as the focus of this work will be structured so that the
instrument, an environmental scanning electron microscope, is provided as a
resource while leaving the planning, execution and control of the
experiment in the hands of teachers and students. Projects such as this
can provide benefits not only to the students involved but also have the
potential to provide the general public with better insight into the goals,
techniques and instrumentation used by scientists.